NGS: Collaborative Research: An OpenMP Environment for Wide-Area Network Computing

EIA-0103582
Rudolf Eigenmann
Purdue Research Foundation

NGS: Collaborative Research: An OpenMP Environment for Wide-Area Network Computing

The objective of this proposal is to develop a new programming system that will close the gap that exists between programming SMPs and networked computer clusters, by using the emerging standard (OpenMP) for SMPs and develop compiler and runtime support that will enable using OpenMP on distributed platforms with optimized performance. The proposed programming system will make it possible to program the Grid and networked computer systems using OpenMP, the emerging standard for shared-memory programming. The PI expects to attain high efficiency in the execution of OpenMP programs for collection of Grid-connected computers. Through static and dynamic compiler techniques, we expect to harness the complexity and load fluctuations of the target environment.